SBIR Phase II: Development of a Cell Controller for Epitaxial Silicon Fabrication

On-Line Technologies, Inc. will develop technology enabling wafer-by-wafer closed loop control of semiconductor process equipment. A closed-loop cell control system providing robust, operator-free, automated, closed-loop control will be developed, which can improve yield, reduce the need for test wafers, decrease operating and testing manpower, shorten development cycles and reduce downtime in the semiconductor industry. These improvements could increase the capacity of a fabrication line by up to 30%.